Extension and Validation of a Hybrid Particle-Finite Element Method for Simulation of Impact and Fragmentation

Hybrid particle-finite element methods offer an approach to modeling
particular impact problems not well suited to simulation with conventional
Eulerian, Lagrangian, or particle codes. This research will extend and
validate a new hybrid particle-finite element technique, in which particles
are used to model contact-impact and volumetric deformation while finite
elements are employed to represent interparticle tension forces and
elastic-plastic deviatoric deformation. Validation will be performed via
simulations of published hypervelocity impact experiments. Formulation of
the method employs a novel thermomechanical Hamiltonian approach. The
research will provide a robust computer simulation technique for a wide
range of impact and fragmentation problems.